Computerized Laboratory Centers for Introductory Physics

The Physics Department will introduce computers and modern microprocessor based instruments for physics laboratories. These instruments include mechanics, interferometer and electrostatics systems along with computers and software. This instrumentation will affect thirteen experiments in six subject areas of both calculus and non-calculus based physics courses. In addition, two sites will be equipped as centers for computer-assisted laboratories. These centers are geographically located to serve the majority of physics students. The College will match the award with an equal amount of funds.